Imaging Science Workshops for USArray

We are proposing a series of 3 workshops to be held over three years focusing on the subject
of scattered wave imaging using earthquakes recorded by densely spaced broadband
seismograph arrays, and particularly using the USArray data. The workshops will be organized
by a steering committee, and developed in cooperation with the participating scientists as the
series progresses. The workshops will be advertised broadly and will be open to anyone
interested in attending.
The workshops will be designed to accelerate the development of scattered wave imaging
techniques by creating a virtual center of scientists and students. The virtual center will actively
engage scientists and students involved in this research in a working forum for exchange of
ideas, joint development of software, and exchange of field and synthetic datasets. Workshop
and study topics will include 1) investigation of the effects of the approximations used in
formulating imaging algorithms on the final images, 2) testing and validation of different
imaging methods using field and synthetic data, 3) experiment design criteria, 4) seismic velocity
analysis, and 5) relating the images to composition and physical state of the Earth.
The workshops will be designed to include working classes for graduate
students (and senior scientists) involved in this research area. This will build community in the
new generation of young scientists who are emerging as the next group of theoretical leaders in
seismology, and who will reap the benefits of the Earthscope endeavor. The synergy of bringing
people from academic and industrial backgrounds will advance the field more rapidly than is
possible otherwise. This improved communication will help advance knowledge in both the
academic and industrial research communities and enhance cross-fertilization between these
groups.